Processing of High Temperature Metal Matrix Composites by Mechanical Alloying

Advanced processing techniques are employed to create niobium composites that display high strength and oxidation resistance. The research is unique in its use of mechanical alloying to develop a large volume fraction of finely dispersed second phase particles on a nanometer scale. The ultimate objective is to improve understanding of structures that are stable at elevated temperatures and display high creep strength and oxidation resistance. Properties under investigation include high temperature creep, low temperature fracture and oxidation.